Kelp forest community resilience in action: adaptive responses of predators to a disease-driven food web perturbation

A key goal of ecology is to understand how species interactions -- competition, predation, mutualism -- influence the structure (e.g., biodiversity) and functions (e.g., productivity) of ecological communities and contribute to the stability and resilience of ecosystems. Kelp forests along the West Coast of North America have been a model ecosystem in which marine ecologists have explored these questions. That work has provided evidence that predators, including sea otters, sea stars, and fishes, can be important in controlling sea urchins that otherwise overgraze forests and create alternative "barrens" states, devoid of kelp. However, other examples suggest that disease and disturbance, not predators, suppress urchin overgrazing. Here we employ experiments and surveys to determine whether and how sea otters and sea stars act separately and in combination to control the rapid growth of sea urchin populations that is occurring in concert with a sea star "wasting" epidemic along the West Coast of North America. The results of this work will (i) advance our understanding of how multiple predators interact to influence community structure, stability and resilience, and (ii) shed light on how species interactions contribute to the stability of these forests that are the foundation of productive commercial and recreational fisheries. The project will involve citizen scientists contributing to surveys of sea otter abundance, foraging behavior and diet, and underrepresented (largely Latino) undergraduates and results will be disseminated in several public outreach facilities and K-12 educational programs.

This project will advance our understanding of the combined roles of species diversity and predators in contributing to the stability and resilience of community structure. Though both predators and diversity have been the focus of numerous studies, fewer have explored how predator diversity does or does not enhance the resilience of marine ecosystems. The investigators will determine the relative contributions of southern sea otters (Enyhda lutris lutris) and two species of sea stars (Pycnopodia helianthoides and Pisaster giganteus) in controlling the density and size structure of two prey species, the purple sea urchin (Strongylocentrotus purpuratus) and a snail (Promartynia pulligo), and the cascading effects on survival and density of giant kelp (Macrocystis pyrifera). Orthogonal manipulations of predator access in large field enclosures/exclosures will be used to assess the relative roles of redundancy, complementarity and "sampling effect" (i.e. particular importance of either species) among the two predators on both direct mortality and indirect (trait-mediated) foraging behavior of their prey. The PIs will evaluate whether results from the experiments "scale up" to explain geographic variation in the relative densities of predators (otters and stars), prey (urchins) and the major primary producer (giant kelp) and the ability of sea otters to compensate for declines in sea stars to control the rapid growth in purple sea urchin populations that can otherwise cause phase shifts (forests to barrens) of these ecosystems.